EAGER: BISH: Isothermal solid-phase PCR using electrostatic control of DNA hybridization

0939048
Vainrub

The proposed research investigates the hitherto unknown fundamental characteristics of electrostatic DNA hybridization. Namely; the yield, kinetic rates, ability to denature long DNA and to support a sufficient number of hybridization cycles, in order to establish conditions for efficient PCR amplification.

The specific aims are to:

1. Construct a fluorescent detector for hybridization and extension of electrode tethered primers.
An evanescent wave fluorescent real-time detector will be built to measure the kinetics and yield
of denaturation, annealing, and extension stages in solid-phase PCR.

2. Prove-in-principle and optimize electrostatic isothermal PCR. Linear and exponential
amplification will be demonstrated in real-time PCR mode using oligonucleotide templates.
Efficient electrostatic pulse cycles and optimal surface and solution conditions will be defined.
Amplification protocols will be developed.